Collaborative Research: CT-ISG: Fault-Tolerant and Secure Infrastructure for Time Critical Embedded Systems

Mosse-Wu

Time-critical applications in embedded systems environments often have stringent quality of service (QoS)
and timing requirements that need to be met to ensure proper operation and dependability, even in the
presence of failures and Denial of Service (DoS) attacks. Achieving this goal, however, brings about a host
of critical challenges which are unique or fundamentally different from those encountered in traditional
wireless sensors and ad-hoc networks. While significant progress is being made in specific technologies
associated with micro-sensing and actuation, formidable barriers remain to large-scale deployment
of fault-tolerant and secure embedded wireless systems for time-critical applications. This collaborative
research project is pursuing integrated research at three levels: (i) reward-based, trustworthy QoS models,
(ii) secure, fault-tolerant routing and data forwarding, and (iii) fault-tolerant data access and management.
The emphasis of the proposed methodologies will be on the inter-relationships between different components
and layers of the system and the consequent research and design issues.

This project is developing comprehensive analytical framework to establish bounds on performance guarantees
when failure occurs or when the system is under denial of service attacks. In pursuit of dependable,robust and secure
embedded systems, this research also focuses on secure and fault-tolerant routing and data management.
The project is developing scalable and energy-efficient routing protocols
that can tolerate both device failures and transient network overload. The project also is
developing dynamic and adaptive risk-based schemes for data aggregation and management.
The effort spans several research areas: distributed and embedded real-time systems, sensor networks,
security, and information processing. The project aims for impact through a wide range of
time-critical applications such as: ubiquitous and pervasive health care, infrastructure protection and
homeland security, and real-time environment monitoring. The project seeks to stimulate cross-area
research and include a diverse group of students from Computer Science, Information Science, and Engineering.
Results and software tools are freely disseminated through the project website.